SBIR Phase I: Early Detection and Prediction of Mobility and Cognitive Decline

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase I project is to improve early detection of cognitive decline and fall risk, particularly in the elderly. The proposed project will develop an artificial intelligence system to assess cognitive issues and estimate how likely a subject is to fall, enabling a new level of security for a vulnerable population.

This Small Business Innovation Research (SBIR) Phase I project advances early detection of mobility problems and cognitive decline. This will be accomplished through the development of machine learning algorithms assessing gait dynamics (with dual-task information) in habitual settings. Research objectives include: (1) Developing a machine learning algorithm for fall prediction, (2) Developing preliminary mobility and fall prediction scoring system, (3) Estimating the cognitive state, and (4) Developing an accurate automatic fall detection system.